Expansion of a Molecular-Beam-Epitaxy Machine for Semiconductor Physics and Nonlinear Decisionmaking Research

The area of lightwave technology as well as materials generally and the investigation of new fundamental phenomena have been significantly impacted by the ability to fabricate artificial structures. Central to this ability is the equipment which makes this possible. Such equipment includes molecular beam epitaxy. The Optical Sciences Center has been a leading institution in the investigation of devices made from such materials and their potential applications to lightwave technology. The present request is for such a molecular beam epitaxy machine to allow them to obtain the materials needed for these investigations.